Special Project: Maximizing The Impact of Conference Attendance Travel Grant: WCCE 95

This grant is to provided partial support for 15 faculty members from minority institutions to attend the Sixth IFIP World Conference on Computers in Education in Birmingham, U.K., July 23-28, 1995. The 15attendees are being selected from among the 120 individuals who were participants on similar NSF travel awards to the National Educational Computer Conferences (NECC), in 1992, 1993, and 1994, and are in attendance at NECC 95. Selection is based on specific accomplishments of the individual that resulted from participation in the previous conferences. This grant is expected to have significant impact on the professional development of faculty at minority institutions and hence on the human infrastructure of U.S. science and engineering.